Recursive Competitive Search Equilibrium: Labor Market Applications

9511111 Mortensen This project extends and applies an aggregate model of income and employment determination developed under the previous NSF grant in three areas: (1) fixed investment in job creation, vacancy chains, and innovation; (2) wage determination and human capital investment; and (3) the value and role of unemployment insurance. The solution to the aggregate model is based on a new solution concept called a recursive competitive search equilibrium that combines the notion of equilibrium in a matching model of the labor market with the concept of recursive competitive search equilibrium. The research contradicts the widely help view that only imperfect competition in labor and/or product markets can explain involuntary unemployment, sticky real wages and observed employment volatility. This new framework permits more accurate quantitative estimates of the effects of labor market policy as well as greater realism. How human capital investment is shared in an environment with transaction friction and turnover has long been a topic of debate and study. The new framework will be used to study such questions as: Do bargaining mechanisms and other wage formation institutions provide the information individuals need to invest in a decentralized setting? If so, what are the losses associated with these institutions? Under what conditions is there a role for government intervention in the form of subsidies to training and education? The significance and potential importance of this new dynamic general equilibrium framework and methods for the study of labor market policy are shown by the attention paid to the strikingly large estimates obtained under the previous NSF grant of the effects of the payroll tax and the Unemployment Insurance (UI) system on the U.S. unemployment rate. A major problem with the estimates of the dead weight losses attributable to UI, one shared with virtually all the formal literature on the subject, is that it accoun ts for distortions attributable to moral hazard but does not include the insurance value of the UI benefit because the model used in the analysis is one in which agents are risk neutral. The third part of this project addresses the theoretical and computational problems in estimating the value of UI insurance.